Data, Information, and Recommendations Regarding Emergency Worker Safety and Health During Disaster Responses - CDC-NIOSH

Data, Information, and Recommendations Regarding Emergency Worker Safety and Health During Disaster Responses